Renovation of the McCullough Building at Stanford University

The McCullough building, erected in the 1960's, is the home for materials research at Stanford University. Currently the building houses the Center for Materials Research, an NSF Material Research Laboratory. It is the goal of the Center to created a new Laboratory for Advanced Materials that will bring 15 faculty from Applied Physics, Materials Science and Engineering, Electrical Engineering, Physics and the Stanford Synchrotron Radiation Laboratory to form a multidisciplinary advanced materials research and education community. However, present infrastructural conditions within the building have created an unsafe facility that lacks proper ventilation, electrical, plumbing and air conditioning systems. The building is not in compliance with existing codes for the type of research activities it currently houses nor the for the planned program activities in advance materials. ARI funds will provide support to assist Stanford in its efforts to renovate laboratory research space in McCullough, specifically, the HVAC, electrical and plumbing systems. The major objective is to ensure that the building is upgraded to occupancy code to accommodate the research and research training activities required in the facility. The project is critical to the long-range plans of Stanford in the area of materials research, a research area of national importance. New renovated space for advanced materials will be dedicated to research in the synthesis, understanding and application of advanced materials, and to the education of students from various science and engineering disciplines in the multidisciplinary style essential in materials research.